Mathematical Fluid Dynamics and Education Turbulent Transport, Combustion, and Compressible Convection

9701942 McLaughlin This work is supported by a National Science Foundation Faculty Early Career Development Award. The research component will focus on the theoretical understanding of fluid phenomena. Specifically, these research efforts outline the study of turbulent transport and scalar intermittency, the numerical calculation of enhanced burning speeds in premixed combustion, and theoretical and computational studies of weakly compressible transport phenomena. An underlying theme in this effort is the isolation of how fluid flow properties affect transport phenomena, which may include enhanced mixing rates, enhanced rare event probability, enhanced burning speeds, and enhanced anelastic heat transport. These studies involve a sophisticated integration of modern asymptotic, numerical, and probabilistic techniques. Additionally, this award will support the continued curriculum development of an advanced undergraduate/ graduate level Mathematical Fluid Dynamics course. Such a course is designed to present the student with the essential mathematical tools necessary to understand fluid mechanics and to quickly equip the student with essential techniques for attacking research problems in Applied Mathematics. Additionally, a small demonstration fluids laboratory will be developed to offer visualization of many fluid phenomena. This Faculty Early Career Development Award will provide the principal investigator the opportunity to pursue his research efforts in the understanding of many fluid transport phenomena while additionally developing new educational curricula. Developing sound theories for fluid transport is fundamental in many ways. The experimental understanding of fluid turbulence typically involves the tracking of passive dye, and, consequently, the quantification of how fluid flow properties affect the mixing of such dye is critical. Further, the development of sound transport theories naturally will yield insight into a va riety of mixing applications such as the tracking of atmospheric pollutants. Perhaps most importantly is the potential information such theories may offer to large-scale computational fluids, combustion and climate models in which a common difficulty regards how to treat unresolvable length and time scales. It is an accepted fact in computational fluid dynamics that important, non- negligible, complex fluid phenomena exist which are simply not resolvable on even the largest supercomputers. These sub-grid effects play a dramatic role in many fluids applications such as weather prediction. They cannot be ignored, and a standard approach is to replace them by something simpler-- an effective mixing coefficient. In many applications, the transport theories developed here offer sound justification and quantification of these coefficients, and potentially may offer improvements to existing computational models. Finally, the curriculum effort will involve the development of a small fluids laboratory including a demonstration water tunnel. Through this lab, a student studying the theory of fluids will find exciting visual contact with real fluids phenomena typically unavailable in mathematics coursework, and this visualization will lead to greater excitement and appreciation for the usefulness of mathematical theory in the understanding of observable phenomena. The National Science Foundation strongly encourages the early development of academic faculty as both educators and researchers. The Faculty Early Career Development (CAREER) Program is a Foundation- wide program that provides for the support of junior faculty within the context of their overall career development. It combines in a single program the support of quality research and education in the broadest sense and the full participation of those traditionally underrepresented in science and engineering. This program enhances and emphasizes the importance the Foundation places on the development of full, balanced academic careers which include both research and education.